Synthesis of Helical Conductors

Research will be carried out to find syntheses for and to study the properties of materials that provide a helical conduction path for electrons. No such material was known until this program yielded the first, an optically active helical metallocene oligomer consisting of as many as 36 hydrocarbon rings and three metal atoms, under NSF grant DMR-8213794. Ideas are presented for constructing such materials in a number of different ways. These include plans for capping conjugated helical hydrocarbons with groups that attract one another and allow electrons to pass between them. (Tetracyanoquino-dimethanes are the best known examples.) Others would terminate the helices with carbonyl groups and then bond them either by interactions with aromatic amines or with metal ions. Still others elaborate the scheme used to prepare the first helical metallocene. After oxidation or reduction, electrons should be able to delocalize throughout, allowing the materials to conduct electricity. The spiralling motion of their electrons should make the structures molecular solenoids, examples of which are unknown. Their optical, magnetic, and conductive properties should be unique.